Funds for an Ultramicrotome

This group of investigators is now requesting funds for the purchase of an ultramicrotome for thin sectioning, and a dissecting microscope for block trimming. The ultramicrotome is an indispensable instrument in standard electron microscopy. It provides sections of suitable thickness from material embedded in plastic. The users of the microtome will use a variety of approaches, from the classical chemical fixation to ultrarapid freezing, to selective staining. Tissue samples, cultured cells, single isolate muscle fibers and isolated cell organelles will be used. The research projects will study muscle differentiation; the architecture of molecules involved in activating the muscle fiber and in the process of contraction; the mechanism of assembly of a functional muscle fiber and the contribution of various molecules to myofibril structure. These projects require different sectioning techniques and thus a versatile microtome. When sectioning muscle fibers, the sections must be very precisely oriented and it is of paramount importance that the microtome includes a specimen mount that allows precise small angle changes. The instrument that we request is particularly useful because it is readily capable of producing excellent quality sections in a range of thicknesses, from ultrathin to semithin, with precise orientation.